Differences between Intergroup and Interindividual Interactions: The Generality and Mediation of Discontinuity

This proposal seeks to investigate an interesting and robust phenomenon of group interaction, the "discontinuity effect." This effect refers to the fact that people interacting as group members are consistently more competitive than when acting alone. A number of interesting possibilities will be tested in this series of laboratory investigations, most of which make use of variables with considerable real-world impact. In one of the studies, for example, the racial composition of the group members will be studied. In another study, the effects of greed and fear are studied in the group or individual allocation of resources. The theoretical and practical implications of the work are interesting and valuable. The investigators are first rate, and well known for their important contributions to this area. As such, the project shows every sign of providing an important contribution to knowledge of the actions of individuals in groups.